Chemistry and Life: A Chemistry/Zoology REU site

This award by the Chemistry Division supports a Research Experiences for Undergraduates (REU) site at the University of Florida for the summers of 2006-2008. The program director is Randy Duran who is assisted by co-PI David Evans. Ten students each year will do research in biology and chemistry interpreted in the broadest possible sense. Participants in this REU Site typically spend 10-12 weeks during the summer conducting research on an independent project in a chemistry-related area with a goal of achieving enough progress to merit co-authorship on a scientific publication. Each fall, the students return to Florida to participate in a poster session with students from the US/France and National High Magnetic Field Laboratory REU sites. These interactions serve as a capstone experience for participants, providing them the opportunity to disseminate their research results to a broader peer audience in preparation for possible presentations at the spring national ACS meeting. Recruiting efforts for this program focus on students from throughout the United States with backgrounds in chemistry, biology, zoology, engineering, biochemistry, or physics.